RI: Small: Speedup Learning for Online Planning Under Uncertainty

Many complex stochastic planning domains such as logistics,
emergency response, resilient power grids, and robotics require the
ability to make high-quality decisions under tight time
constraints. This project addresses the need for high-quality, but
computationally efficient, decision making via new theory and
algorithms for speedup learning, which will enable planners to
learn to speedup their performance based on prior planning
experience. This speedup-learning approach is loosely inspired by
the fact that humans routinely learn to speedup their reasoning
processes with experience, without sacrificing decision quality.
Similarly, through speedup learning, an inefficient planner that
produces high-quality decisions will be transformed into a much
faster planner with little loss in decision quality.

The project involves advancing speedup learning for online planning
under uncertainty on four fronts. First, the speedup-learning
problem is formalized by introducing the canonical problem of
Primitive Speedup Learning (PSL) and studying how PSL can be used
to solve various speedup objectives. Second, a novel online
planning framework, which subsumes many existing frameworks and
enables many potential speedup opportunities, is being designed and
developed. Third, the project is producing new speedup learning
algorithms for the new framework, which learn various types of
knowledge and that can exploit deep neural network (DNN)
techniques. Finally, the research is producing extensive empirical
evaluations including applications to the important problems of
power grid control, municipal emergency response, and benchmark
planning domains. The project has the potential for significant broader impact on
applications where time-sensitive decisions must be made within
stochastic environments. It will directly contribute to advances in
two applications in particular: remedial action control in
electrical grids to minimize cascading power outages, and planning
for municipal emergencies such as fire and rescue operations in
cities. The project will also serve to advance graduate education
through research assistantships and undergraduate education through
summer and academic term research experiences for undergraduates. A
special topics graduate course will be taught on the area of
planning and learning at Oregon State University and all course
materials will be open access.